"In Situ Bioremediation: How Do We Know When It Works?"

This is an award to provide support for a project to study bioremediation as a process for decontamination of groundwater. The study is expected to provide guidance for determining the effectiveness of bioremediation procedures and to identify any further research needed to evaluate bioremediation procedures for decontamination of soil and associated groundwater resources. This project will be conducted by a panel of experts appointed by the Water Science Technology Board. The panel members will be selected for their expertise relevant to bioremediation.